Infiltration Metasomatism in Skarn Deposits and Related Metasomatic Rocks: A Joint United States/Soviet Study

The principal investigator will study skarns and the related metamorphic rocks in deposits of both the United States and the former Soviet Union. The study is designed to determine the role of three alternative models of metasomatism, and to better understand the development of ore deposits.